36th Annual Meeting: Wind River Conference on Genetic Exchange, Estes Park, Colorado, June 10-14, 1992

Support is requested for the 36th annual meeting of the Wind River Conference on Genetic Exchange to be held at the Wind River Ranch, Estes Park, Colorado, June 10-14, 1992. This conference is primarily concerned with the biology and molecular biology of genetic exchange systems in a variety of procaryotic and eukaryotic systems, and is the major annually occurring meeting devoted to this subject area internationally. One significant feature of these meetings is their accessibility to graduate students and post-doctoral students, whose travel funds frequently are limited. Specifically to address this problem, we request funds to provide travel support scholarships to facilitate the attendance of graduate students and post-doctoral students working in various areas of genetic exchange and related subject areas. %%% This consistently excellent meeting is the major forum for discussion of transfer of genetic information between organisms.